Travel: Student Travel for the Programming Languages Mentoring Workshop (PLMW) at the International Conference on Functional Programming (ICFP)

A Programming Languages Mentoring Workshop (PLMW) is being organized annually as a satellite workshop of the 2023 to 2025 ACM International Conference on Functional Programming (ICFP). ICFP is the premier conference on the design, implementations, principles, and uses of functional programming. This award supports students from underrepresented groups so that they can attend the mentoring workshop in addition to the ICFP conference. The impact of the award relates to broadening participation in computing, providing opportunities for students to receive mentoring from leading researchers, and building the next generation of researchers and knowledgeable practitioners with general expertise in programming languages, and specific expertise in functional programming.